Asymptotic Properties of 3-Manifolds and Their Fundamental Groups

Abstract

Award: DMS-0104030
Principal Investigator: James W. Cannon

We attempt to resolve the hyperbolic case of Thurston's
Geometrization Conjecture for 3-dimensional manifolds. Among the
many possible approaches, we choose to study the asymptotic
recursive properties of the fundamental group of the manifold. We
concentrate on the asymptotic shingling patterns at infinity
defined by the group and seek methods for proving that such
patterns do or do not satisfy the necessary and sufficient
conformality axiom which we introduced in our earlier studies. We
study this problem in three contexts: (1) We study closed
3-manifolds with Gromov-hyperbolic group, with emphasis on the
examination of concrete examples constructed by our new method of
twisted-face-pairings; (2) We study general subdivision or
local-replacement rules in the plane, where we have more freedom
in constructing examples with special properties; and (3) We
study branched coverings of the 2-sphere by the 2-sphere, where
the corresponding problem is to some extent already solved by
means of Thurston's combinatorial characterization of rational
maps. It is in the third context that the connection with
classical Teich- mueller theory becomes apparent; we are seeking
an appropriate version of Teichmueller theory for our setting. In
all of these contexts, we use the circle-packing programs of Ken
Stephenson, the automatic group programs of Epstein, Holt, and
Rees, and the program SnapPea of Jeff Weeks in conjunction with
programs of the proposer and his coworkers to construct,
geometrically optimize, and explore the patterns being studied.

William P. Thurston has supplied us with a powerful conjectural
picture of the spaces of 3-dimensional mathematics, the
3-dimensional manifolds. Thurston's Geometrization Conjecture is
the most important unresolved problem in low dimensional
topology, even if one sets aside the case of spherical geometry
where the conjecture implies the famous "million dollar" Poincare
Conjecture. Thurston suggests that every 3-manifold can be
divided in an intrinsic manner into pieces, each of which is
modelled on one of eight natural geometries. Within each piece,
one can apply well-understood algebraic and geometric techniques
to derive properties of the manifold. This project seeks to
resolve the generic case of the Thurston Conjecture, namely the
case of hyperbolic geometry. The technique employed is to
maximally unwind the manifold, that is, take its universal cover,
and study the asymptotic properties of this cover. The cover can
be studied combinatorially almost as a growing cellular organism
as a plant or animal might be studied by a cell biologist. The
cover can be studied computationally as a cellular automaton
might be studied by a computer scientist. The cover can be
studied analytically by methods of discrete dynamical systems or
differential equations or conformal mapping.